A Conference on Nonparametric Inference and Probability with Applications to Science

This project provides funds to partially support a research conference
focusing on several related important topics in nonparametric
inference and probability, with applications to science. The
conference is planned to be held in Ann Arbor at the University of
Michigan, September 10-11, 2005. It will highlight challenges and
developments in biased sampling and missing data, shape-restricted
inference, contemporary sequential analysis, and modern nonparametric
inference, probability, and statistics in biology and physical sciences.

Statistical inference, the science of learning from data, has always
had an interdisciplinary focus, and as statistics and related areas of
application evolve and move forward, there is an ongoing need to share
developments and new ideas across related disciplines. This conference
at the interface of statistics and the sciences will promote this
transfer of knowledge allowing researchers in these related fields to
share ideas and learn from one another. The conference will also have
broader impacts, allowing young and leading researchers to interact
and exchange ideas, promoting collaboration, broadening the scope of
applications, and contributing to further developments in these areas.